Conference: Parallel Circus Meetings Held in the Spring andFall

This proposal requests two year support for the participation of graduate students in the parallel circus meetings which are held twice a year. It is anticipated that 10 graduate students will attend each meeting and that the attendees will be chosen by a committee based on the quality of their research. This will give many graduate students the opportunity to have their research scrutinized by experts in the field at an early stage of their career. This in turn could have a positive impact on research in parallel processing.